Methods and Materials for Preservice Teacher Education in Diagnostic and Prescriptive Teaching of Secondary Mathematics

This 3-year teacher preparation project will develop and evaluate methods and materials for preparing secondary school mathematics teachers to apply research-based diagnostic and prescriptive teaching strategies. The materials to be developed will provide preservice participants with information to assess student misconceptions and to interpret student performance errors in order to plan and conduct instruction aimed at correcting student difficulties. Faculty in mathematics and mathematics education from seven teacher preparation colleges will collaborate on the conceptualization, writing, testing, and refining of materials. At the University of Maryland a new course to be required of preservice secondary mathematics teachers will be developed in which the materials will be featured and evaluated.